A Genetic Approach to the Study of CAD

The first three enzymes of de novo pyrimidine biosynthesis are the same from bacteria to humans. Yet the structure, organization, and regulation of the enzymes and their respective genes have changed considerably. In mammals the enzymes, carbamyl phosphate synthetase II, aspartate transcarbamylase, and dihyroorotase, are found together in a single translation product called CAD. Most studies have been limited to biochemical analysis of purified protein or proteolytic fragments derived from it. However, we have developed a strategy for expressing individual enzymatic domains of hamster CAD in E. coli. This now allows us to introduce genetic changes into the DNA sequence and observe the effects on enzyme structure and function. For this work we will exploit this strategy for analyzing each enzyme of the CAD protein and for comparing the CAD domains to their monofunctional counterparts in bacteria. Through a series of experiments involving molecular biological, genetic, and biochemical methods, we hope to learn much about the structure, function, and evolution of a multifunctional protein that plays a key role in an important biosynthetic pathway.